SGER: Permit Procurement for the 1994 Olduvai Archaeology Project

9318316 Blumenschine With National Science Foundation support Dr. Robert Blumenschine will attend an international paeloanthropology conference to honor Dr. Mary Leakey. The meeting will be held in Arusha Tanzania. In Arusha, Dr. Blumenschine will also make arrangements for his impending National Science Foundation supported archaeological research project at Olduvai Gorge Tanzania. Both before and after the conference Dr. Blumenschine will visit Dar Es Salaam to discuss the research with Tanzanian scientific collaborators. He will also talk to relevant Tanzanian officials in an attempt to obtain a research permit. ***